SGER: Design of Active Surface based on Ferromagnetic Shape Memory Alloys

0303536
Taya
An SGER award supports research on the design of mechanically active surfaces using ferromagnetic shape memory alloys. The FePd alloy can be made to switch surface morphology between flat, corresponding to the austenite phase and the magnetic field turned off, and sawtooth form, corresponding to the martensite phase and the magnetic field turned on. The morphology change may potentially be useful in design of brakes or propulsion systems for miniature systems. The work will entail development of suitable single crystal plates with optimal martensite twin morphology, testing for durability and speed of switching, and initial tryouts in miniature mechanisms.
The broader impact of the work is that it could result in development of a new method for providing miniature movement, or braking for a large number of industrially important MEMS and other miniature systems and devices.
***